NSF Young Investigator: Towards An Engineering Basis for Software Architecture

An important goal in software engineering is to describe complex software systems at an architectural level of abstraction. While architectural design has always been a major factor in determining the success of a software system, architectural descriptions are typically understood only in informal, idiomatic ways. Because of this informality architectural designs are typically not well-integrated into the software development environments, but appear (if at all) as corroborative high-level documentation for a system. This research places architectural design on a more solid footing in two complementary ways. First, it provides a formal basis for describing and reasoning about architectural designs. This leads to rules for checking whether architectural designs are well-formed in a way that is analogous to type checking for existing implementation languages. Second, it provides tools for developing style-specific architectural design environments. These tools provide cost-effective ways to generate new environments tailored to the architectural design of specific application families. This grant includes support under the Research Experiences for Undergraduates (REU) Program.